US-German Cooperative Research on Molecular Beam Epitaxial Crystal Growth

This project aims to combine the facilities and personnel of the University of California at Santa Barbara and a group at the University of Erlangen, headed by Gottfried Dohler. Research focuses on the growth and characterization of non-stoichiometric compound semiconductors and graded semiconductor quantum structures, and will combine molecular beam epitaxy of samples and electronic characterization at Santa Barbara with optoelectronic characterization at Erlangen. There will be an exchange of researchers with the goals of transferring knowledge and allowing students to gain hands-on knowledge of each groups experimental methods.